Determination of Structure-Function Redox Potential Relationships for Flavoproteins and Metalloenzymes

This Research Opportunities for Women Career Advancement Award project is in the general area of analytical and surface chemistry and in the subfield of bioelectrochemistry. During the twelve month period beginning 1 September 1989, Professor Stankovich will undertake a program to develop expertise in genetic engineering such that she can produce metalloenzymes with well-defined molecular characteristics to serve as models with which she can test theories of biological electron transfer processes. To acquire this expertise, Professor Stankovich will collaborate with Professor Grant Mauk of the University of British Columbia who is an expert in the area of site directed mutagenesis. This Career Advancement Award will enable Professor Stankovich to broaden significantly her research capabilities in the area of bioelectrochemistry. The results of this research could bear significantly on the current understanding of biological electron transfer processes.